New Connection of Laredo Community College to Internet

PI: Alma Hernandez Laredo Community College requests support from NSF to acquire communications lines required to connect to the Internet. THENET, a midlevel network in the in the state of Texas, will provide operations management and information services and it will give the campus access to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. Laredo Community College needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general.